Dissertation Research: Dispute Resolution in a Lowland Philippine Community

This research project examines the relationship between sorcery beliefs and practices and other modes of processing interpersonal disputes in communities on Siquijor Island, the Philippines. The student aims to delineate the cultural values and cosmological beliefs which affect interpersonal conflict and conflict resolution and to analyze the role which sorcery plays in the mediation of conflicts. He will test the hypothesis that sorcery is chosen as a mode of dispute processing when mediation is unsuccessful. This research will contribute to our knowledge of sorcery and religion, dispute processing, social relations, and interpersonal conflict in the Philippines. While sorcery is often characterized as an illegitimate or pathological form of social control, this research will show that it is part of a larger system of values that make the world comprehensible to its inhabitants. This research will uniquely advance our understanding of Philippine social relations. Social relationships are determined by considerations of conflict as much as by positive goals such as social reciprocity and companionship. Because this project will focus on conflict- causing issues, the means used to process disputes, and the consequences of conflicts, it will shed light on the relationship between conflict and the structuring of social behavior.